The Structure and Dynamics of Dislocations: From Atoms to the Continuum

9414648 Phillips This research centers around three objectives. First, the traditional Peierls model of dislocation mobility is reassessed in light of atomistic calculations. Secondly, a new experimental technique for measuring directly the interplanar shear potential is examined from the point of view of atomistic calculations of the interplanar potential. Finally a new scheme for bringing together atomistic simulation and continuum methods is explored. This will allow for the use of finite-element calculations outside of their usual province of applicability in order to study problems of dislocation mobility. The unifying theme of the research is the examination of factors governing the structure and mobility of single dislocations in a way that allows the results to be tied directly to experimentally accessible quantities, i.e., bring together atomistic and continuum approaches for the treatment of dislocation structure and dynamics. ***